Introductory Parallel Computing Workshop

Reflecting the improvement in parallel computer technology during the past decade, parallel computing has emerged from the realm of graduate study into the undergraduate curriculum at larger research universities. In 1991 the ACM/IEEE-CS Joint Curriculum Task Force recommended the incorporation of several knowledge units related to parallel computing into the curriculum of all undergraduate computer science programs. Unfortunately, at many small colleges and universities, computer science faculty members possess little experience in parallel computing. To assist these computer science faculty in learning about parallel computing, this project develops and implements two five-day parallel computing workshops. The workshops accommodates one- hundred participants from small academic institutions lacking faculty knowledgeable in the area of parallel computing. The workshop's main objectives are to: provide participants with sufficient knowledge and hands-on parallel programming experience so they can incorporate parallel computing into their curriculum; provide participants with educational materials to facilitate incorporation of parallel computing into their curriculum; and establish electronic mail capability between all participants and the project directory for exchange of ideas, technical support, and results relating to parallel computing. After participants incorporate parallel computing into their institution's curricula, these institution's undergraduate computer science students will be better prepared for their professional field. Additionally, educational materials developed for the workshops will be published, and made available electronically by anonymous ftp. This will assist other academic institutions interested in incorporating parallel computing into their curricula, or hosting similar workshops.